PostDoctoral Research Fellowship

This award is made as part of the FY 2023 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Alex M. Kapiamba is " Near-parabolic MLC” The host institution for the fellowship is Brown University and the sponsoring scientist is Jeremy Kahn.